Giant Planets: Exploring the Outer Solar System

The Space Science Institute (SSI) will design, develop and travel a 3,500 square foot exhibition about the outer planets of the solar system and their satellites, whose presence contributes to making Earth habitable. Designed around the theme "Living With Giants," the exhibition will feature hands-on interactive visitor experiences that describe the Solar System, engage visitors in learning about planetary exploration, focus on the planetary science of Saturn and its moons and provide access to current information from the Cassini-Huygens mission to Saturn. Special attention will be given to designing "Space for Kids," an exhibit area targeted specifically for young learners and their families and caregivers. SSI will collaborate with leading scientists and educators as well as NASA's Jet Propulsion Laboratory to create education programs and a virtual exhibit website to extend the science learning of the exhibition.